Polyhedral Approaches to Selected Problems in Computational Logic

This project explores connections between computational logic and polyhedral combinatorics through the paradigm of Quantified Polyhedral programming. Quantified Polyhedral programming encompasses Quantified Linear Programming (QLP) and Quantified Integer Programming (QIP); both the programming paradigms are extremely useful in modeling environment-dependent actions in real-time scheduling problems. Quantified Integer Programs can also be used to formally verify the correctness of programs through the mechanism of Abstract Interpretation. This project aims to provide a framework in which traditional notions of duality and convexity can be extended to the 2-person game setting. For instance, a typical optimization problem is defined by an optimization function and a convex set, called the domain of feasibility. In real-world applications, such as robot navigation, the domain is not fixed but varies continuously as a consequence of events initiated by the environment. Thus, the concept of optimality needs to be defined in a 2-person setting.

On a broader front, the investigator plans to significantly advance the state-of-the-art in Quantified Polyhedral Programming through a combination of innovative research and the integration of research themes into graduate and undergraduate education. This work will have the added benefit of increasing the participation of women and under-represented minorities in computer science research.

This award is co-funded by West Virginia EPSCoR.